Localized Structures and Complex Dynamics in Pattern Forming Systems

9804673
Riecke

The general goal of this project is to contribute to the understanding of
spatio-temporal structures that arise spontaneously in many driven
dissipative systems. Mathematically, these systems represent dynamical
systems with many degrees of freedom. The PI will focus on waves in
two-dimensional systems with axial anisotropy. The immediate motivation
is given by recent experiments by G. Ahlers et al. on electroconvection in
nematic liquid crystals, where three interesting regimes have been
observed: 1) extended waves exhibiting spatio-temporally chaotic
dynamics, 2) waves localized into narrow, long patches (`worms'), and 3)
temporally irregular, spatially localized bursting of the wave amplitude.
These phenomena are found immediately above onset at small amplitudes
of the waves. They therefore afford an excellent opportunity to develop
and test mathematical ideas that will be relevant quite generally in weakly
nonlinear theories of dissipative structures. Furthermore, due to the
anisotropy this two-dimensional system can be described systematically
by Ginzburg-Landau-type equations. No recourse to phenomenological
equations of the Swift-Hohenberg-type is needed. The main part of the
project is devoted to the worms. They cannot be described by the
Ginzburg-Landau equations derived by straightforward asymptotic
analysis. The analysis has to be extended to include certain additional
modes that are strictly speaking not on the center manifold but become
relevant already very close to threshold. The main questions to be
addressed are: the localization mechanism of the worms and suitable one-
dimensional reductions (standing- and traveling-wave pulses), the stability
of long worms, and the nucleation of worms from small noise. The project
will demonstrate how in cases like the one described here the qualitative
and quantitative relevance of the weakly nonlinear theory can be
drastically increased by including a single additional mode. This aspect
carries over to a wide range of other systems. On a more specific level, the
advection of a slow mode will be important in other wave systems as well.
At the same time, for the electroconvection system detailed qualitative and
quantitative comparisons with ongoing experiments will be achieved
through close cooperation with the experimentalists.

In wide range of systems spatial structures appear spontaneously. These
patterns can be time-independent or may have the form of traveling or
standing waves. Just a few examples are animal coat markings, waves on
the surface of vibrated fluids, cloud streets, waves in chemical reactions
and in nerve conduction. If the properties of a system are the same over its
whole extent one would usually expect that the patterns also cover the
whole system. However, in quite a number of cases a spontaneous
localization of the pattern in patches or even single wave crests has been
observed. In repeated runs of the same experiment the patches occur in
randomly varying locations. This indicates that their localization is not due
to special properties of the system at that location. Such localized waves
have been observed, e.g., in vibrated granular material, fluid convection in
mixtures, and in nematic liquid crystals. The funded research will
contribute to the understanding of the causes that lead to localization
focussing on the `worms' observed in liquid crystals. It will elucidate the
mechanism in detail and investigate the chaotic bursting of such structures
and how they are generated (nucleated) from weak noise that is due to the
thermal motion in the fluid. Using advanced mathematical methods, the
research will bring out the central features that are relevant more generally
in other systems as well.